Earthquake Applications Workshop

This project is a follow-up to NSF Grant No. 8617912. It will involve the convening of a workshop of 18 designated regional program coordinators to discuss recommendations and plans for the National Earthquake Hazards Reduction Program. These recommendations will focus on ways to improve research applications in the program.